Minority Graduate Research Award Honorable Mention: Mario Gamboa

This special award will give Ph.D. student Mr. Mario Gamboa additional flexibility in pursuing his graduate studies and research in the molecular analysis of the early development of the orthopteran Acheta domesticus (house cricket). The award will strengthen miniority research participation in this area.